SBIR Phase I: Sub-Decadal Weather and Climate Forecast System to Mitigate Risk for Energy and Natural Resource Applications

The broader impact of this SBIR Phase I project is to reduce weather and climate risk for organizations within the environmental and natural resource sectors through multi-year forecasts. The proposed forecast system uses a combination of Earth science and computer science to create a highly interpretable forecast system that is optimizable for the needs of specific industries. These multi-year ("sub-decadal") forecasts help renewable energy resource assessment, hydropower applications, and the mining industries. Better forecasting can lead to cheaper energy, more reliable long-term water supply management, and the improved environmental sustainability of mining operations.

This SBIR Phase I project will advance development of a sub-decadal weather and climate forecast system integrating geoscience and machine learning. Project activities include: assessing the technical feasibility; evaluating the computational scalability; determining the relevant industry-specific inputs and outputs; and validating the output and interpretability. The algorithm must scale across multiple spatial and temporal timescales.